UWF S-STEM Scholars

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at University of West Florida. A total of 38 scholars pursuing bachelor degrees in STEM disciplines will receive scholarships averaging $11,000 for up to five years. Scholars will receive faculty and peer mentoring and the project will build strong scholar cohorts through STEM living learning community, STEM for life seminar course, monitoring and tracking, embedded counseling, grit and resilience assessments. Additional activities for scholars include alumni speaker series.

The overall goal of this Track 2 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income undergraduate with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the STEM workforce in Pensacola region of Florida and other high-priority areas of need. The project will be assessed by an experienced evaluator who will collect data and work with the PI team to improve project deliverables and contribute to the annual report, and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.